Dissertation Research: Differential Resource Access in a Thule Eskimo Whaling Community

9313627 Spielmann Under the direction of Dr. Katherine Spielmann, Mr. Peter Whitridge will collect data for his doctoral dissertation. He has begun and will continue archaeological excavations at the site of PaJs-2 which is located in the Central Canadian arctic and was inhabited by Thule Eskimo peoples between ca. 1100 - 1450 A.D. Preliminary data indicate that the site was occupied recurrently for six to eight months a year by a group of 100 to 200 people whose economy centered in intensive harvesting of bowhead whales. Over the course of excavation, Mr. Whitridge will expose seven domestic dwellings, a ceremonial house and surrounding activity areas and middens. Because of permafrost conditions, artifactual material is well preserved and provide detailed insight into the lives of these prehistoric peoples. Mr. Whitridge will focus on status differentiation and will examine materials to gain insight into the degree of differential access to economic resources. Thus valued foods - as reflected in animal bone - and exotic and scarce commodities will provide a focus for attention. Archaeologists are interested in the origin and causes of social inequality and Thule Eskimo from this perspective are of particular interest. It is widely believed that hunter gatherer societies are basically egalitarian in nature and because of the rigors of this way of life, status distinctions between sexes and between families rarely if ever occur. However because groups such as the Thule specialized in whale hunting, food was often abundant and based on ethnographic analogy successful hunters often were accorded great respect. Mr. Whitridge wishes to examine whether such factors in fact resulted in inequalities. This research is important for several reasons. It will provide data of interest to many archaeologists. It will increase our understanding of the processes which led to the emergence of complex society and assist in the training of a promising young scientist. ***